Acquisition of a Spectrofluorometer with Stopped-Flow Kinetics and Fluorescence Life-Time Measurement Capabilities

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the Rose-Hulman Institute of Technology will acquire a spectrofluorometer with stopped-flow kinetics and fluorescence lifetime measurement capabilities. This equipment will enhance research in investigations on a) the complex structural and functional changes in the estrogen receptor-a induced by ligand binding; b) the photochemical reactivity of dissolved organic matter (DOM) in natural water; c) the role of metal ions in oxidative DNA damage; and d) the change in the hydrodynamic radius of insulin during aggregation.

This instrumentation will bring laser-based techniques into the undergraduate education (both teaching and research) and the resulting research will have an impact in a number of areas, especially environmental chemistry and biochemistry.